Simplified RF and Microwave Measurements

Modern computer-based measurement systems can have a major impact on the quality and productivity of engineering education. However, there is a danger that highly sophisticated equipment can mask rather than enhance learning. It is important that students use relatively simple equipment at the beginning of a laboratory program to help them build their intuition. This project involves the addition of two vector voltmeters and two impedance analyzers to the Microwave and Communications Laboratory to complement the existing automatic network analyzers. The goal of the project is to develop experiments around this equipment which build intuition, and ease the transition from theory to complex measurement systems. The project will be used as part of an on-going overall study of the proper role of emerging hardware and software technologies in the engineering classroom and laboratory.